SBIR Phase II: Serendipitous Search System Using Lateral Analogy to Match Potential Solutions to Unmet Needs:Feasibility Study Based on Screening Approved Drugs for Repurposing

The broader impact/commercial potential of this project is to accelerate the pace
of research and development to enable more rapid deployment of technologies
into commercial / industrial contexts. In many fields, information is expanding at
such an exponential rate that finding relevant results to technical knowledge
searches is increasingly difficult. Further, content is expanding so fast that most
fields are rapidly forming sub-disciplines, leading to the “silo-ing” of different
knowledge sub-domains, a clear challenge to both academia and industry. We
need ever better ways to organize and present information to users. There are
disadvantages of the current search engines, mostly relating to excessive
similarity in search results. Further, while these engines present information
relating to a known search target, they are less effective at presenting
unexpected results for information that a user has never heard of but that would
be useful. What is therefore needed is an exploration system giving searchers a
strong serendipitous element with a maximum likelihood of results from diverse,
unexpected, and potentially provocative sources. This will break down silos by
providing a rapid, relevant means for knowledge-transfer between different
disciplines, fostering interdisciplinary innovation. This system has been designed
to provide a means for systematic, automated discovery.

This Small Business Innovation Research (SBIR) Phase 2 project is focused on
optimizing and scaling a serendipitous document search system for repurposing
technologies by analogy into lateral fields. Both by sub-parsing discrete content
into ontologically separable entities, such as capability, characteristic, and
composition, and by comparatively assessing certain of these attributes between
such entities, the attribute relatedness of these entities can be used to drive their
self-assembly into related attribute networks. This approach provides a
significant value proposition for drug repurposing, which is the current focus of
this project. To scale the pair-wise comparison and network assembly of millions
of documents, a map-reduce based text-processing framework will be developed
so that massively parallel computations can be carried out in a time- and costefficient
manner. A distributed search engine technology will be deployed to
enable rapid querying of the emerging document relationship network. A series of
machine learning algorithms will then be used to determine potentially hidden
structural architectural features within the document relationship network.
Machine learning will elucidate the nature of the relationships in drug networks
through analyses of inter-node relationships and sub-graph motifs (termed
“innovation motifs”). Documents including U.S. patents and scientific papers will
be processed in the system.